Engineering Faculty Internship: Fluid Mechanics at the Ford Motor Company

9412633 Foss This work consists of a collaboration between the PI and researchers at the Ford Motor Company. The PI will spend one semester of a sabbatical leave at Ford working with various colleagues in the fluid mechanics area. It is expected that there will be substantial collaboration during this period. It is also viewed as likely that continuing funding from Ford will be available as the result of the PI identifying significant problems to which he can contribute. It is also expected that the knowledge gained by the PI will directly impact upon on-going courses he offers and that new and relevant examples will be brought into the classroom and laboratory. ***